Continued Support for the Underground Pipeline Experiment at Parkfield, CA

A field experiment is performed in which underground pipelines are placed within the Parkfield segment of the San Andreas Fault. The experiment aims to examine the validity of current assumptions about the behavior of underground continuously welded steel pipe and jointed ductile iron pipe subjected to near surface fault offset. Active and passive instrumentation are made to permit important assumptions embodied in current prediction and design methods to be evaluated and improved. Critical parameters to be measured will be the anchor length in welded pipes and the relative rotations and displacements at joints in segmented pipes.